A Parallel Computation Laboratory

Lisp machines will be provided for researchers at Brandeis University for research in the Department of Computer Science. The equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering. The research for which the equipment is to be used will be in the area(s) of *Logic Programming *Parallel Functional Programming *Mechanical Program Analysis *Data Compression *Computational Linguistics